Development of Sensory and Motor Binocularity

For effective human vision, the brain must integrate the binocular input from the two eyes, and in turn drive the two eyes to move binocularly in appropriate directions. The development of sensory binocularity appears to depend on the ability to align the two eyes to give visual stimulation of corresponding points on the retina of each eye. This alignment is a precursor to development of cells in the visual cortex that are sensitive to retinal disparity, and for stereoscopic vision. This project studies how oculomotor and sensory factors combine to contribute to the development of binocular visual functions during infancy in humans. Models are outlined for possible developmental relationships, and a novel binocular eye-tracking technique will be used to measure human infant eye movements. Data on developing motor binocularity is compared to data on developing sensory binocularity measured by a variety of behavioral and non-invasive tests, to see how sensory and motor factors are combined. Results from this study will be important to visual science, and also to developmental human research and to human performance analysis, with further likely importance to understanding disorders in binocular vision. ***